SBIR Phase II: Reliable and Efficient Data-Plane Verification

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project will be to significantly enhance reliability and security of critical network infrastructure, and ease network management tasks. Through multiple pilot deployments on live networks, a prototype version of the company's software tool has found a number of serious errors and vulnerabilities that were missed by existing state-of-the-art auditing techniques and monitoring tools, and was able to perform real-time network-wide verification within as little as one millisecond. When more fully developed under this project, the company's technology will help ensure highly available networking infrastructures. To this end the company will work with Urbana-Champaign Big Broadband (UC2B), a community network expected to provide gigabit fiber-to-the-premise to 2700 under-served residences and 350 community anchor institutions. The company will also work with the Global Environment for Network Innovations (GENI), which is building a collaborative network environment to catalyze groundbreaking discoveries and innovation in emerging global networks.

This Small Business Innovation Research (SBIR) Phase II project will continue the development and commercialization of a new approach to analyzing and protecting computer networks. Every aspect of our society, from business, to government, to medicine and the sciences, is now tightly intertwined with the functioning of computer networks such as the Internet. However, modern networks are extremely complex, leading to a rich variety of failure modes and outages. These errors can result in very high costs for businesses, including lost revenue from SLAs, lost customers and contracts, fines for violating regulations such as HIPAA, leaks of sensitive information, and decline in corporate image. To address this challenge, the company is building a system that automatically verifies security and correctness of computer networks in real-time, discovers vulnerabilities, and assists network operators in determining their cause. The technology functions by scanning a network, constructing a formal model of the network's behavior, and using custom formal logic algorithms to automatically determine whether the network contains faults. It can vet networks continuously as the network state evolves, detect transient errors and signal immediate alarms, and scale to large and highly dynamic environments. It is intended to provide immediate practical assistance to network operators.